Mathematical Sciences: Nonlinear Wave Motion

The original abstract under DMS-8803471 is still valid. Professor Ablowitz has transferred from Clarkson University going to the University of Colorado at Boulder.